SBIR Phase I: Web-Based International Trade Knowledge Discovery System (TradingCube)

This Small Business Innovation Research Phase I project will focus on applied research. The goal is to create a commercial Web-Based International Trade Knowledge Discovery System based on the TurboRAD Inc. innovative copyrighted software also known as TradingCubeTM. TradingCube is a Web Based Large Scale Information Application requiring only a standard browser to be used. With TradingCube, a decision maker can easily navigate the dynamic analysis of world markets for a wide range of product groups as well as specific products. TradingCube enables the functionality of a novel combination of tools including data management technologies, web technologies, knowledge discovery, econometrics and statistics. It requires the creation, storage, retrieval, and display of large volumes of international trade information effectively and efficiently. TradingCubeTM provides an intuitive interface and rapid results expressed in textual and graphic ways that do not require specialized knowledge to be understood by the user.
The potential market includes any commercial, private or public enterprise or entity with the need to evaluate international trade opportunities.